Cloning of Tomato Fruit Polygalacturonase (PG) Converter Protein : Analysis of PG Isozyme Function

The activity of the tomato the tomato fruit pectin-hydrolyzing enzyme polygalacturonase (PG) increases dramatically during ripening due to the presence of three closely related isoforms, PG1, PG2A and PG2B. The Pg2 isoforms are composed of single catalytic PG polypeptides while PG1 is a heterodimer consisting of one PG2 polypeptide in tight association with an ancillary glycoprotein, the PG converter. The involvement of each isoform in pectin degradation and other aspects of fruit ripening remain unclear. The PG isoform levels in planta appear to be determined by the level of converter protein. In order to increase our understanding of the biosynthesis, assembly and biological activity of cell wall enzymes such as PG, the levels of individual PG isoforms will be manipulated in vivo by altering the levels of converter protein in transgenic wild-type plants. To accomplish this the converter protein will be purified, cloned and its structure and expression during wild-type fruit ripening studied. Converter protein levels will be manipulated by expressing a converter cDNA in sense and antisense orientations in transgenic wild-type tomato plants presumably resulting in accumulation of only PG1 or PG2. These studies will increase our knowledge of the effect of individual PG isoforms on polyuronide degradation and other physiological parameters associated with fruit ripening. Several enzymes and structural proteins are secreted from plant cells into the cell wall. The activities of these proteins are essential for normal growth and development as well as specialized functions such as fruit ripening and plant defense. An important question is how the activities of such important proteins is controlled when they are secreted from the cell and not subject to the normal mechanisms associated with the regulation of cytoplasmic enzymes. This proposal describes an interesting approach to studying the processing and function of an extracellular enzyme, polygalacturonase, which degrades polyuronides in the cell wall during fruit ripening. //